Doctoral Disseration Research: Aging and Intergeneration Family Dynamics in Copper Inuit Community

This dissertation proposal examines aging, adult development, and intergenerational family dynamics among Copper Inuit in the Central Canadian Arctic community of Holman, Victoria Island. The investigation focuses specifically on the attitudes toward and significance of aging in light of rapid social changes that Copper Inuit have experienced in the past 30-35 years, the material position of aged Inuit (age 50 and over), and the importance of the aged, both economically and symbolically, to young adult Inuit in the community.